POWRE: Experimental Investigation of a Biological Ultrasonic Sensory System

9753091 Hastings Recently, fisheries biologists, using ultrasound to count the number of fish impinging on power plant intakes, serendipitously discovered that several species of clupeid fish respond to pulsed acoustic signals at frequencies from 80 to 140 kHz. The mechanism for such detection is not known, however, the auditory bullae, special air-filled structures in the inner ear of this family of fish are believed to play a major role. Understanding the mechanics of this unique biological system would serve two purposes. First, knowledge of the mechanics for detection of ultrasonic signals could provide the key to the development of new and improved transducers for biomedical applications. Second, since rather high power ultrasonic signals are being used both to find clupeids and to divert them from power plant intakes and dams, results of this research will provide information on what sounds would be more readily detected by clupeids and sound pressure levels that would be adequate to modify behavior without harming their inner ear. The objective of this study is to examine the mechanics of the inner ear of a clupeid fish known to respond behaviorally to ultrasonic signals, the American shad (Alosa sapidissima). This species will be experimentally evaluated by measuring the frequency response of the swimbladder, bullae membrane, and utricular otolith to both pulsed and continuous wave ultrasound using a noninvasive, noncontact vibration measurement system that has been used successfully to measure frequency responses of the peripheral auditory organs in the goldfish (Carassiiis auratus) and oscar (Astronotus ocellatus). Results of this study will be used to develop a mathematical model for the dynamic response of the clupeid auditory system to ultrasonic signals. Such a model is the first step in duplicating characteristics of this unique biological system for biomedical engineering applications. ***